CSR: DMSS, TM: Quantifying the Impact of Latency on Network-Interactive Computing

There is growing academic and commercial interest in models of
interactive computing where code segments that lie in the critical
path of user interaction are split across a network boundary. We use
the term "Network-Interactive Computing" to characterize such models.
Thin client computing and Ajax-based computing are two
examples. Unfortunately, introducing network delays into the critical
path of user interaction can degrade the crispness of system response,
and hurt usability. Today, we lack the scientific framework to
quantify the impact of latency on network-interactive computing.

This research will establish the scientific underpinnings of
network-interactive computing with respect to performance and
usability. Our work will span three areas: (a) Development of metrics
and benchmarks; (b) Calibration of metrics against user experience;
and (c) Classification of real-world applications based on their user
interaction characteristics. We will develop the intellectual tools
and evaluation techniques to help answer questions such as the
following: ``Will a legacy interactive application that performs well
on a local computer degrade unacceptably in a specified
network-interactive computing environment?''; ``When designing a new
environment for network-interactive computing, can one predict which
applications will perform acceptably?''; and, ``Can one develop a
taxonomy of applications that allows us to easily understand and
predict the impact of networking changes on interactive performance?''
Our goal is to establish network-interactive computing on a sound,
well-validated and replicatable experimental foundation.